Oceanographic Instrumentation 2012

A request is made to fund additional and back-up instrumentation on the R/V Marcus Langseth, a 235? Global seismic vessel with general oceanographic capabilities operated by Lamont-Doherty Earth Observatory of Columbia University as part of the University-National Oceanographic Laboratory System research fleet. The request includes three items listed by priority:

1) BOLT fire chambers and spreader bars $254,806
2) 50% Diverter Doors $24,400
3) EM 122 Water column logger license $9,197
Total $288,403

Broader Impacts:
The principal impact of the present proposal is under criterion two, providing infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.